Information Systems Security Education

This project develops a curriculum to incorporate information systems security education into the graduate and undergraduate programs. The project contains four phases: development and revision of information security courses, production of security modules for selected courses, development of an information security certificate graduate program, extension of library resources to include security references, and construction of an information systems security laboratory to support class activities and research.